Efficient Algorithms for Problems in the Next Generation of Computing

Efficient Algorithms for Problems in the Next Generation of Computing

Cliff Stein
Columbia University

Computers, computer systems and the computational infrastructure
provided by the Internet are now essential for many aspects of modern
life. It is well-known and well-documented that, even as computing
power and network bandwidth increase at a rapid rate, the demands that
users and applications place on these resource increase at roughly the
same pace. Thus, no matter how much progress we make on the hardware
and network ends, we will always need efficient algorithms to manage
these resources. This research focuses on several algorithmic
problems in computer systems and networks; arising both from existing
technologies and at technologies that are evolving, or have been
proposed. By improve the efficiency with which we manage our devices
and infrastructure, there will be tremendous savings, both in time and
economically. In addition, the investigator integrates theory and
systems and encourages more collaboration between these areas, with
obvious benefits. This work has an impact on the decisions that are
being made presently about the next generation of the Internet, of
routing, and of scheduling in operating systems.

In particular, the investigator studies four concrete problem areas:
scheduling in operating systems -- finding schedules that are low overhead and use resources fairly;
scheduling in the next generation of routers -- designing algorithms
that allow packets with different levels of service to be routed
efficiently; network coding -- designing algorithms to manage this
exciting new routing technology, and power management -- designing
algorithms that schedule jobs to provide good response time and to use
power efficiently. While the details of these various areas differ,
the overall goals are to design simple, low overhead algorithms, use
algorithms with rigorously proved bounds and analysis, design new
theory and transfer existing theory closer to the systems. The
investigator also designs educational materials suitable for teaching
algorithms to a wider audience.